CAREER: INVESTIGATING ELECTROSTATIC DISCHARGE PROTECTION IN ULSI ICs DOWN TO NANO-SCALE: SIMULATION, MODELING & EXPERIMENTS

Electrostatic Discharge (ESD) failure is a devastating reliability problem
to VDSM (very-deep-sub-micron) and nano-scale Si ULSI IC technologies.
It is imperative to investigate ESD failure fundamentals and on-chip ESD
protection theories focusing on the following challenges: 3D mixed-mode
ESD simulation methodology; accurate high-current ESD modeling; whole-chip
ESD design synthesis, advanced ESD protection solutions for ULSI ICs, ESD
protection for super-GHz RF ICs, ESD protection for nano-scale as well
as wide-bandgap semiconductor IC technologies. The PI proposes a
career development plan that addresses these challenges.

Proposed research activities consist of six tasks: to investigate
advanced on-chip ESD protection phenomena in ULSI ICs by developing a novel
3D mixed-mode ESD simulation methodology; to investigate ESD
protection fundamentals by developing accurate high-current ESD device
models; to develop a full-chip ESD design verification CAD tool called
ESDcat; to explore novel ultra-fast ESD protection solutions for
sub-100nm ULSI ICs, to explore ESD protection for future nano-technologies,
and to extend ESD research to super-GHz RF ICs and wide-bandgap
semiconductor, GaN.

Since ESD phenomena are geometry-dependent involving complex
electro-thermal-process-device-circuit coupling, the proposed
research procedures take full-scale mixed-mode approaches that investigate
ESD fundamentals in a fully-coupled process-device-circuit-electronic-thermal
closed-loop in 3D format. A 3D parallel ESD model network is proposed
for accurate high-current ESD modeling. ESDcat enables chip level ESD
synthesis and verification at both schematic and layout levels. Nano-scale
ESD research will take into account the ballistic phonon scattering
effect. ESD for wide-bandgaps will focus on Si-compatible GaN ICs.
End results include insights into ESD mechanisms, CAD tools for further
investigation and design of ESD protections for various IC technologies,
e.g., CMOS, BiCMOS, SOI, SiGe, GaN, RFIC, and Cu interconnects. Both
new ESD theory and immediate industrial applications are expected.

The education plan centers on: new curriculum development; integration
of microelectronics research and education; student mentoring and
community services; and university-industry collaboration. Specifically,
activities include: develop five courses/labs in a five-year period;
pursue an improved microelectronics teaching approach; establish an
Integrated Electronics Laboratory, a Virtual IC Fab facility, and
TCAD/ECAD Design Studios; advising students in conducting
inter-professional projects; develop a undergraduate industrial
co-op program; and involving minority/women students in microelectronics
research. This five-year education proposal is integrated into
the departmental redevelopment plan in microelectronics